Cosmic Explorer Suspension Design

Gravitational-wave astronomy is enabling the study of black holes, neutron stars, and other extreme cosmic phenomena through the ripples they create in spacetime. To fully realize the scientific potential of this field, future observatories must detect gravitational waves at lower frequencies and from greater distances than is currently possible. This award supports the development of key technologies for Cosmic Explorer, the United States concept for a next-generation gravitational-wave observatory that will be capable of observing events throughout the Universe with a tenfold improvement in sensitivity over existing detectors. The project focuses on advancing the suspension systems that isolate detector optics from ground motion and environmental disturbances, a critical requirement for extending detector performance below 30 Hz. The project will also provide research and training opportunities for graduate and undergraduate students in physics and engineering, and will support outreach activities that engage both the scientific community and the public.

This award advances the conceptual design of the Cosmic Explorer test-mass suspension system and demonstrates key design features through a reduced-scale prototype. Building on prior work that developed an initial suspension concept and on technologies being investigated for future upgrades to the Advanced LIGO detectors, the project will apply state-of-the-art suspension modeling tools to refine the suspension architecture, evaluate performance, and guide design decisions. A prototype suspension incorporating the major elements of the conceptual design will be constructed and tested to validate critical technologies and assess system behavior. The resulting design studies and experimental demonstrations will inform multiple aspects of the Cosmic Explorer observatory, including low-frequency noise reduction, thermal compensation strategies, stray-light mitigation, interferometer control, and facility design considerations. The project will provide a foundation for the suspension technology required to achieve the sensitivity goals of next-generation gravitational-wave observatories.